DCL: NSF INCLUDES: Accelerating Data-Driven Collaboration for Large-Scale Progress

This award supports a conference entitled "Accelerating Data-Driven Collaboration for Large-Scale Progress" which will support the progress of INCLUDES (Inclusion across the Nation of Communities of Learners that have been Underrepresented for Diversity in Engineering and Science) Launch Pilots toward their broadening participation goals. The issues and challenges affecting the persistence of students of color, students from low-income households, females, and students with disabilities in STEM learning surpass the scope of programs designed to promote awareness of STEM career options. The Launch Pilots will need technical assistance to leverage their strategic plans, become poised for the next level of becoming an Alliance, and ultimately show impact that results in large-scale progress.

The conference will support the Launch Pilots in their broadening participation goals by providing opportunities to (1) develop innovative new ways to gather data and make evidence-based decisions, (2) connect with best practices on the frontiers of data-driven collaboration, and (3) apply new knowledge and innovations to their projects that address societal needs. The overarching design of Data-Driven Collaboration is to facilitate the sharing of ideas, struggles, and promising practices in a collaborative and participatory manner. This will occur by fostering a network improvement community (within and across Launch Pilots), engaging participants in systems thinking and problem-solving through collaborative modeling, and a 2.5-day Public Support and Engagement Lab conference. Launch Pilots who engage support from Data-Driven Collaboration will have a variety of technical assistance services available between November 2016 and April 2017.